Transforming Geoscience Preparation for K-8 Pre-Service Teachers: Including Testing the Significance of an Intensive Field-based Experience

The project is developing and testing a model for improving the preparation of undergraduate pre-service teachers who will go on to teach earth science in grades K-8. Prior semester-length courses in physical geology and educational science methods are being combined into a year-long course taught by both Geology and Education faculty. The course integrates learning of earth-science content with the methodology of how to teach it, producing a next generation of K-8 science educators who are knowledgeable and enthusiastic. In conjunction with revised classes and laboratory experiences, pre-service teachers are developing shared digital portfolios of teaching resources. An additional effort is testing the impact of a preparatory, four-day intensive field experience on learning by pre-service teachers who enroll in the year-long course.

Through explicit integration of content and pedagogy, the project is directly addressing the lack of preparation in physical science and learning about the nature of science among many pre-service elementary and middle-school teachers. Beyond contributing to the future teacher workforce in the region, the project is also disseminating the model of a collaborative, integrated science/education course to a national audience through web resources and conference workshops.